EAPSI: Reducing Uncertainty in the Simulation of the T2K Neutrino Particle Beam

Neutrino physics are poorly understood currently. This project seeks to enhance our understanding of these fundamental particles using the T2K (Tokai to Kamioka) experiment to make precise measurements of neutrino properties. Neutrinos are produced by accelerating a beam of protons to high energies and then colliding them with a target. The T2K measurements depend on the properties of this proton beam and how it interacts with a target. The properties of the beam are studied with physical measurements and computer simulation. These simulations are important for predicting and assessing the observed behavior of the proton beam. This project will improve neutrino beam simulations for the T2K experiment by incorporating new advancements in simulation technology to improve accuracy, and by incorporating new physics data collected by other experiments to improve precision. These improvements will enhance the accuracy of the measurements made by the T2K experiment. This research will be conducted in collaboration with Dr. Tetsuro Sekiguchi, the leader of the T2K beam group, of the High Energy Accelerator Research Organization (KEK) in Japan.

The T2K neutrino beam simulation currently is built using a custom framework utilizing the FLUKA and GEANT Monte Carlo simulation packages. Part of this project will involve migrating the beam simulation to an updated version of GEANT and then testing and validating its performance. The performance of the neutrino beam simulation is tuned and checked against experimental data, which needs to be updated when new and more precise data sets are available. Recent data sets from the NA61/SHINE experiment are available and will be used for this purpose. Finally, this project will involve the calculation of new correlated systematic uncertainties between the two T2K near detectors to allow for both new and more precise measurements of neutrinos to be made by T2K.

This award under the East Asia and Pacific Summer Institutes program supports summer research by a U.S. graduate student and is jointly funded by NSF and the Japan Society for the Promotion of Science.